Dissertation Research: Microevolutionary Dynamics and Conservation Genetics of the Rare Vernal Pool Sunflower Lasthenia Conjugens (Asteraceae)

Vernal pools are ephemeral wetlands that are home to many endemic plants and animals.
At Travis Air Force Base in California, a restoration project is in progress to create new vernal
pools that will have similar levels of biological diversity as natural pools. The proposed research
focuses on the federally endangered vernal pool endemic annual plant called "Contra Costa
goldfields" (Lasthenia conjugens; Asteraceae). The primary goals of the proposed study are to
compare changes in levels and patterns of genetic variation over time in natural vs. artificial
pools and to assess the relationship between insect-pollinator activity and genetic variation. To
achieve those goals, a kind of genetic fingerprinting technique will be used to measure genetic
variation and that information will be compared to information obtained by making detailed
observations of pollinator activity.
The results of this research will have broad scientific implications and will help guide
applied, conservation management decisions. More broadly, this study will contribute to our
understanding of the genetics and evolution of species endemic to the unique and rapidly
disappearing vernal pools. Few detailed studies of any vernal pool species have ever been
conducted. From a conservation management perspective, this study will assess the
effectiveness of an ecological approach to habitat restoration in preserving the genetic integrity
of a species and in preserving important plant-pollinator relationships.